Computer Science, Mathematics, and Engineering Scholarship Program (CSEMS)

This project provides scholarships for mathematics and computer science majors. The program includes a mentoring seminar to be held two evenings per month, internships at major local companies, and the opportunity to work on research projects with faculty members. The recruiting plan includes working with a local community college to bring in more Native American students. Support structures incorporate existing programs which serve underrepresented groups as well as nontraditional age students. The program is designed to be not only a scholarship award but a concerted effort to keep these students from falling through the cracks.